A High Pressure Capture and Aquarium System for the Study of Abyssal and Hadal Animals

Scripps Institution of Oceanography will undertake an Ocean Sciences instrumentation development project to design and construct an integrated capture and aquarium system for obtaining, studying, and maintaining live deep-sea animals. Components of the system will include a variable-ballast float package that will be capable of lowering and raising the aquarium to full ocean depth, pressure-retaining traps outfitted with observation ports for viewing animals inside, a deep-sea camera system for monitoring trap performance on the sea floor, plus necessary mechanical and electronic systems for keeping the water within the aquarium at high pressure and cold temperature once the system is recovered. Progress in the study of deep sea organisms is being impeded by a lack of ability to capture them and study them while alive. This aquarium system will meet this requirement and open up new areas for deep sea biological research.